Tests of Elementary Reaction Rate Theory

In this project in the Physical Chemistry Program of the Chemistry Division, Gordon will perform experimental studies to provide a quantitative test of several aspects of unimolecular and bimolecular reaction rate theory. The questions to be addressed include the breakdown of conventional transition state theory, the contribution of tunneling to bimolecular reaction rates, and the disposal and correlation of angular momentum. The effect of unusual mass combinations, high potential energy barriers, and multiple transition states on each of the phenomena being studied will be determined. %%% The goal of the current studies is to test several aspects of two reaction rate theories in order to better understand at a fundamental level the various factors which affect bulk reaction rates. With such information, one might be able to control the direction of a given reaction by setting conditions to favor one product channel over another, thereby, for example, increasing yields of commercially important reactions.